Nuclear Structure and Nuclear Astrophysics

This proposal will provide for continuing research at the Nuclear Structure
Laboratory (NSL) of the University of Notre Dame for a period of three
years. Research at the NSL is based on a broad program in low energy
nuclear physics and includes studies of nuclear reactions, structure,
dynamics, and fundamental symmetries spanning the subfields of Nuclear
Astrophysics, Weak Interactions and Fundamental Symmetries, Nuclear
Structure, and studies of Nuclear Reactions with Radioactive Ion Beams
(RIBs). This proposal represents a growing trend towards a more cohesive
and synergistic research program as our interests coalesce in the area of
Nuclear Astrophysics. We are enthusiastic about future developments in low
energy physics with the proposed construction of the rare isotope
accelerator RIA. Our funding request includes the support of three
accelerators (JN, KN, and FN) and various new developments in detectors,
ion sources, and new systems for fast transport of radioactive materials.
While the scientific output of the NSL and its impact to low-energy nuclear
physics has been tremendous, the most important part of our mission is
education. The obvious impact to Technology transfer via our education
mission has been substantial. Typically, 9 Ph.D. are awarded in a given
three year period. The Nuclear Structure Laboratory is a national and an
international resource with a lively user program from 14 US facilities
including universities and national laboratories, 11 foreign countries, and
I industrial laboratory.